Marine Board General Support Cooperative Agreement

The general support program of the Marine Board, National Research Council includes multi-disciplinary engineering studies which will be useful in identifying ocean engineering research needs applicable to the NSF Engineering Program. An assessment will be made of the state of knowledge of seafloor properties and processes as related to the future utilization of the seabed within the EEZ. Ten federal agencies are participating in this timely project. Assessments are planned concerning the adequacy of the engineering research and education base to achieve national ocean objectives. Societal trends and deliberate national programs are rapidly altering our relationship to the marine environment. Significant national goals include marine environmental protection, ocean and coastal space and resource utilization, and improved scientific understanding of the global air-sea system. Two initiatives in planning address the national ocean engineering research and education competence and required facilities and programs to achieve these and other national objectives. Final reports on studies conducted in CY 88 will be provided to NSF.